Improvement of Engineering Technology Robotics Laboratory

A multi-tool adaptor assembly for an existing commercial CGA robot and an additional small commercial high-speed robot are incorporated into the current robotic curriculum of the Engineering Technology Department. These items of equipment are used in the laboratory experiments for courses in Robotic Fundamentals, Computer-Aided Manufacturing, Sensors and Vision Systems, Computer Integrated Manufacturing, and, on occasion, Special Problems.